TSIP: Biology Curriculum Enhancement

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering, and mathematics (STEM) instructional and research capacities of specific institutions of higher education. Expanding the STEM curricular offerings at these institutions expands the opportunities of their students to pursue challenging rewarding careers in STEM fields, provides for research studies in areas that may be locally or economically relevant, and encourages a community and generational appreciation for science and mathematics education. Sustainability of capacity gains is significantly enhanced by retaining the talent of credentialed STEM faculty. This project aligns directly with that goal.

Turtle Mountain College (TMC) is enhancing its bachelor of science in biological sciences (BSBS) degree to increase the capacity of the BSBS program to prepare students for post-graduation employment and for participation in post-baccalaureate STEM programs. Its specific goal is to prepare BSBS undergraduates for careers in biotechnology and biomanufacturing, such as a laboratory or field technician role, and for graduate studies in biology and related fields. The goal is achieved by adding a professional preparation area of emphasis and a computational biology area of emphasis to the BSBS curriculum. The project employs instructional techniques such as problem-based learning, experiential learning, lab-centered instruction, interdisciplinary active learning, scaffolded problem-based learning, data-centered learning, quantitative reasoning, and the flipped classroom. Moreover, the biotechnology and biochemistry courses employ a novel pedagogical approach where all contact hours are spent performing lab exercises maximizing hands-on learning, and the scientific writing course uses in-class hours for writing exercises to minimize reliance on AI.